Higher Dimensional Algebraic Varieties

The purpose of the proposal is to study the connections between algebraic geometry, topology and number theory. Specifically, at issue is the relationship between the
topology of a variety and the Kodaira dimension. Furthermore,
the project will investigate the degeneration of varieties
and their application to solving diophantine equations over
local fields.

The aim of the research here is to furnish a theoretical
understanding about which shapes can be described
efficiently with equations. Such shapes include curves and surfaces but also
higher dimensional shapes in higher dimensional spaces. Of special
interest is a description of parametrized shapes, since this provides fast algorithms for computational purposes.